Simultaneous Photometric and Imaging Studies of Wave Propagation in Four Atmospheric Layers

The atmosphere at mesospheric and lower thermospheric levels (80 to 120 km altitude) is continually subject to the disturbance of waves passing through the region, including diurnal and semidiurnal tides, planetary waves, and gravity waves originating at tropospheric levels which propagate upward with exponentially increasing amplitude, as the atmospheric density exponentially decreases with height. The wave activity affects the chemical reactions producing airglow in several layers in the region, and it is possible to study the wave properties (wavelength, direction of propagation, amplitude, etc.) and sometimes infer sources, by ground based observations of the airglow emissions at night using photometers and allsky imaging cameras. This award is to initiate a program of such observations at an undergraduate institution, in cooperation with researchers at other institutions using complementary radio and optical equipment. The training of undergraduate students in atmospheric science, and the arousal of their interest in a possible research career, are added benefits of the activity.